Building Blocks for Distributed Applications: Theory and Practice

This project will develop infrastructure to support a structured,
building blocks approach to distributed system development, focusing
on group communication systems middleware.
An important goal is to bridge the gap between theory and systems
research in this area.
Theoretical work will include study of the semantics of group
communication systems, development of new algorithms to implement
these semantics, and analysis of correctness and performance of these
algorithms.
Systems work will include implementation of group communication
algorithms, performance experiments, and comparisons of observed and
predicted performance.
The project will also study the use of these building blocks in
applications, and compare this approach with other approaches to
building the same applications.